Stomach Oils and Reproductive Energetics in Antarctic Seabirds

Antarctic diving petrels, unlike other surface-feeding seabirds in the Antarctic, have lost their ability to produce stomach oils to feed their young. As a result, petrel chicks grow slower and fledge older than other seabird chicks reared on meals containing a high (20%) percentage of stomach oils. Any adaptive advantage that stomach oils provide the chicks of these other seabirds remains unknown. Using cross-fostering experiments, diving petrels rearing chicks that are normally fed meal with stomach oils and vice versa, Dr. Roby proposes to investigate how the presence or absence of stomach oils in the meals fed to seabird chicks influence the growth rates. Specific topics to be addressed are: (1) gastrointestinal transit rates, (2) lipid assimilation efficiencies, (3) patterns of lipid storage and catabolism, (4) growth and development, (5) adult foraging efficiency, and (6) net production efficiency of the parent/offspring unit. The results will be evaluated to address the ecological and energetic significance of stomach oils for reproduction in Antarctic seabirds, as well as the factors responsible for the absence of stomach oils in diving petrels.